FASEB Summer Conference on Micronutrients: Trace Elements; Copper Mountain, Colorado; June 25-30, 1995

9505163 Sunde Dr. Sunde will host the 1995 FASEB Summer Conference on Micronutrients: Trace Elements, to be held on June 25-30, 1995 at Copper Mountain Resort in Colorado. The conference will focus on recent developments related to the metabolism, function and molecular biology of iron, copper, zinc, and selenium. It will consist of slide presentations, workshops, viewing of posters and informal discussions. The purpose of the conference is to exchange ideas, define important areas of research, and develop novel schemes to solve basic questions of biology and the interaction of nutrition and genes in human health and disease. ***